Methods for Studying the Thermodynamics of Biotransformations Based on Group Contributions and Maximal Rates

9531787 Mavrovouniotis This project is aimed at the development and implementation of systematic techniques for the thermodynamic analysis of biochemical reactions and pathways. This proposal has three components: (1) determination of the standard (biological) Gibbs energy of formation of any biochemical compound from its structure, based on contributions of groups; (2) determination of the standard (biological) Gibbs energy change and the equilibrium constant of a biotransformation, from groups that occur in the metabolites involved; and (3) a technique that translates thermodynamic limitations to limitations on bioreaction rates, allowing the interpretation of the potential effect of thrmodynamics on observable parameters. ***